CAREER: Electrostatic Discharge Protection in SOI-CMOS Circuits

9623424 Rosenbaum The CAREER award addresses the fundamental issues regarding Electrostatic Discharge (ESD) reliability of Integrated Circuits and Devices fabricated in SOI-CMOS technology. Thermal modeling, design of protection devices, and experimental testing form the basis of the investigation. The device models and stress limits will be incorporated into a CAD tool for circuit level simulation. The education of graduate students will be interdisciplinary and involve the development of a new course. ***